Investigating Effects of Vibrations and Surface Waviness on Dry Sliding Wear and Friction

An experimental study will be made to determine the effects of contact vibrations on friction and wear in dry sliding contact and to develop maps of optimal amplitude and frequency conditions to give minimal wear and/or friction for given conditions. Vibrations will be imposed from external actuators or generated by the sliding surfaces due to engineered surface roughness. The results will be used to develop and validate a model for the effect and to form the basis for design selection of operating conditions for components such as electrical brushes.